The Effect of Strain on the Phase Separation and Magnetoelectric Coupling in Manganites

NON-TECHNICAL ABSTRACT

Multiferroics are compounds which can be simultaneously magnetized (are
ferromagnetic) and electrically charged (are ferroelectric). Such
compounds hold promise for applications in devices and lead to
unprecedented data-storage capacity. However, the underlying mechanism
which leads to such unique properties is poorly understood and needs to be
resolved before practical devices can be fabricated. This individual
investigator award supports the study of a family of multiferroic
manganese oxide compounds known as manganites. The properties of
manganites are intimately linked to their crystal structure. The theme of
this project is to quantify the role played by crystal structure in
multiferroic manganites and suggest methods to design materials better
suited for device applications. High quality manganite thin films will be
grown using laser ablation. These thin films' response to strain (change
in the crystal structure) will be studied by measuring the change in their
electrical resistance and magnetism. The microscopic effect of strain will
be studied using techniques such as a microscope capable of mapping the
local magnetism of the material. Since the research and training program
includes both sample preparation and measurement, this award will help
train undergraduate and graduate students in various aspects of condensed
matter physics research and give them a broad based experience, which will
enhance their future career options in the industry or academe.

TECHNICAL ABSTRACT

Perovskite manganese oxides (manganites) display unique properties such as
micrometer scale phase separation and multiferroism, which are intimately
linked to their crystal structure. Hence, the electrical and magnetic
properties of manganites are sensitive to strain. This individual
investigator award supports an experimental program to directly measure
the effect of strain on the properties of manganites and by comparing the
results to the predictions of theoretical models, determine the origin of
phase separation and multiferroism in manganites. The experimental results
are also expected to reveal methods of enhancing the magnetoelectric
coupling in multiferroic manganites and controlling the nanoscale
properties of phase separated manganites. High quality manganite thin
films will be grown using pulsed laser deposition. The thin films will
then be subjected to direct external stress using a three point
beam-bending apparatus to induce uniaxial strain in the material. Using a
complementary suite of local and bulk measurement techniques such as
magnetotransport, magnetization, scanning probe microscopy, and neutron
reflectometry, the phase diagram of the thin films will be mapped as a
function of strain, magnetic field, electric field, and temperature. Since
the research and training program includes both sample preparation and
measurement, undergraduate and graduate students will be able to learn
about a wide variety of materials and experimental techniques, which will
prepare them for academic and industrial careers.